WORKSHOP: Identifying Synergies and Fostering Collaborations in a Joint Workshop of the National Science Foundation and the National Endowment for the Arts

The arts and the sciences each contribute to the improvement of the human condition, yet it is clear that these modes of inquiry feature different values, aims, methods, registers and more. Furthermore, they are often posed in opposition to one another with practitioners highlighting the largely incommensurate extremes, rather than productive synergies, or practices that endeavor to serve integrated arts/science ends. In contrast, this workshop is intended to provide fertile ground for productive dialogue amongst cultural producers operating in human-centered computing, the arts, and the social sciences. In particular, this workshop will lay the foundation for articulating the types of inquiry, collaboration, funding-opportunities, and innovation that (1) lie at the intersection of concerns of the National Science Foundation and National Endowment for the Arts and (2) represent opportunities for producing knowledge and art unanticipated by either institution alone. It is not necessary to start this process from scratch. As an initiative of the Computer & Information Science & Engineering Directorate (CISE) Information and Intelligent Systems division (IIS) and Human Centered Computing cluster (HCC), the NSF CreativeIT Program funded "projects that explored interdisciplinary and synergistic cross-disciplinary research in creativity and computer science and information technology." The program funded research efforts integrating creative practices outside of the "traditional" usability- and productivity-oriented HCC cannon, including art/science and art/engineering collaborations. We can learn from the successes and challenges of supporting high-risk, high-reward research from the CreativeIT program. The CreativeIT program provides as its legacy a platform we can use to inform future funding endeavors that support and celebrate creativity-based technology research.

The goals and objectives of this workshop are to establish a ground for a thoughtful and vibrant dialogue amongst human-centered computing researchers and technology innovators, artists, creative practitioners, and social scientists. This dialogue can provide insights and indications for brainstorming, understanding, and developing innovations in IT research (building on previous workshops and endeavors in the field over the past decade and longer. Furthermore, this workshop is proposed as a first step to continued involvement between the National Science Foundation, National Endowment for the Arts, and other support organizations to understanding the infrastructure needs of the field in the United States. The goals of this workshop include the following: 1) Fostering current and new inter-agency, inter-institutional relationships for dialogue, collaboration and new inter/cross agency co-funding opportunities. 2) Identifying points of intersection between in information technology oriented work in digital media arts and human-centered computing. 3)Producing a field impact report that will inform next stage activities at follow-up workshop activities and meetings with the goal of organizing infrastructure support channels that can help this community sustain and thrive. The workshop participants will represent thought leaders and influencers from the following constituency categories: Researchers in games studies, human centered computing, cultural and critical technology studies, technology innovations; University Program Directors in the arts, digital media, design, and computer science.; Creative Practitioners bridging aesthetics, computation, engineering, and cultural practices; Non Government Organizations (NGO) Directors with programs that support technology-based creativity research and arts influenced leadership methodologies; Foundation Leaders from organizations that support creativity-based technology research and applied applications; and Thought leaders and Influencers who have been engaged in the dialogue about transdisciplinary research practices and innovation.